Studying Family Learning at a Traveling Environmental Biology Exhibit Developed with and for Alaska Libraries and their Communities

It is well-established that outdoor nature experiences, particularly those that generate emotional responses such as feelings of awe, can bring about a sense of nature connectedness. However, the ways that nature connectedness can be brought about by indoor informal learning experiences, such as nature-focused exhibits, are relatively underexplored. Relatedly, awe is an emerging affective learning outcome of high interest in the informal STEM learning field. This project will add to the nascent research literature by studying the relationships between exhibit design elements, nature connectedness, and emotional responses such as awe. Researchers at the University of Alaska and exhibit developers and evaluators from the Oregon Museum of Science and Industry will partner with librarians and their communities across Alaska to develop a traveling immersive exhibit on pollination, one which is specifically designed to elicit a sense of awe and nature connectedness. Pollination is a critical aspect of terrestrial ecosystems, with the vast majority of flowering plants requiring a pollinator in order to reproduce; however, many pollinator species are declining or shifting their ranges as the climate and environment changes. General knowledge about pollination remains low, a trend that is evident in Alaska. Yet, in Alaska, these trends have implications for culturally important wild-collected plants. The exhibit will travel to libraries across Alaska, making the immersive experience accessible to everyone visiting host libraries. Grounded in principles of Universal Design for Learning and incorporating components that are derived from known antecedents of awe, this immersive exhibit will feature giant flowers that allow visitors to take the perspective of a pollinator. Augmented reality and multisensory elements will directly engage learners in pollination-related concepts such as interdependent relationships. To deepen connections to localized community interests and experiences, librarians will co-design public programming activities related to the exhibit content.

This project builds knowledge in the informal STEM learning community in two ways. First, the project will use an exploratory qualitative design to query the relationships between exhibit design elements and the ways in which nature connectedness and emotions are generated and linked. Two main research questions include 1) What emotions are experienced in an exhibit designed to produce awe among visitors? Which aspects of the exhibit produce which kinds of emotions? 2) What, if any, changes in nature connectedness do visitors describe after experiencing the exhibit? In what ways does nature connectedness intersect with any emotions experienced? Interviews and video data for 40 families will serve as the primary data sources. The project will draw from and build on several existing coding schemes (e.g., the Core Affect/EARL scheme, a Nature Connectedness scheme), supporting methodological advancement in the field as well. The qualitative nature of the research will allow the team to explore whether and how core elements of nature connectedness intersect with the cultural values (e.g., Tlingit), and detail such nuances in the findings. Front end evaluation will engage Alaska communities to form the exhibit content and stories, while summative evaluation will investigate the extent to which participants find the exhibit and programming interesting, engaging, informative, and relevant. The second contribution to informal STEM learning knowledge-base is through summative evaluation queries into lessons learned from participating librarians regarding the development and delivery of programming, and the impacts of the project on participating libraries and librarians. Findings will be widely shared by the University, OMSI, and the libraries to ensure broad impacts in each of these related fields. Dissemination will include social media, journal publications, and presentations at professional meetings.